Topology of 3-Manifolds

Proposal: DMS-0071852
PI: David Gabai

Abstract:
During the last 100 years there has been tremendous interest in
understanding the topology and geometry of 3-dimensional manifolds. In
part, because a 3-manifold is (roughly speaking) a mathematical object
modeled on our familiar 3-dimensional environment. A 3-manifold has the
property that sufficiently small subsets can be parametrized by 3
coordinates.

The problem of characterizing the geometry and topology of surfaces, i.e.,
manifolds of dimension 2, was completely answered nearly a century ago. It
was determined that the only closed orientable connected surfaces are the
sphere, torus, and the multi-holed tori. Furthermore, such surfaces can
be given geometries of constant curvature, +1 for the sphere, 0 for the
torus, and -1 for the other surfaces.

Although great progress has been made during the last century, the
situation for dimension-3 is not nearly so well understood. Nevertheless a
conjectural picture for the structure of 3-manifolds emerged almost 25
years ago (by Thurston) and there has been much theoretical and
experimental evidence supporting his conjecture. The hyperbolic
3-manifolds, i.e. the manifolds of constant -1 curvature, play a central
role in this picture. In this proposal the PI in collaboration with
various other mathematicians, plan to investigate the structure of
hyperbolic manifolds and the structure of manifolds which are conjecturally
hyperbolic. In particular they will study the structure of the
diffeomorphism group of hyperbolic 3-manifolds, and the structure of
hyperbolic 3-manifolds of low volume. They will also address whether or not
a closed aspherical, atoroidal, 3-manifold has a Gromov negatively curved
fundamental group. A positive resolution would imply that a 3-manifold
which is conjecturally hyperbolic, has at least the coarse algebraic
structure of a hyperbolic 3-manifold.